Problems in Quantum and Classical Statistical Mechanics

---------------------------------
PI: Tom Kennedy, University of Arizona
DMS 0201566

Abstract:

The first part of the project concerns self-avoiding walks in two
dimensions and their relation to Schramm's stochastic Loewner evolution
process. Schramm's process is believed to describe the scaling limit of
a variety of two-dimensional models, including the self-avoiding walk.
The pivot algorithm provides a fast method for simulating
self-avoiding walks. Recently, the principal investigator has
found a new implementation of this algorithm that is as much
as eighty times faster in two dimensions.
This will be used to test both the conjectured conformal invariance of
the self-avoiding walk and its equivalence with stochastic Loewner
evolution. A version of the weakly self-avoiding walk in which the
penalty for self-intersections decays with the length of the loop
produced by the self-intersection will be investigated by simulations and
perturbative means. The second part of the project concerns
excited states in quantum spin systems. Recent work by the principal
investigator has developed a method for studying the dispersion
relation of one quasi-particle states and interface states in one dimension.
The method is based on assuming a certain ansatz for the wave function
of the states and then proving there is indeed an eigenstate of this
form by a contraction mapping argument.
This method will be used to study interface states in two dimensions and
the excited states above these interface states.

Self-avoiding walks are random walks which are not allowed to visit
the same place more than once. They provide a model for linear polymers
in a dilute solution. The interest in this model is, however, much broader
since it is one of the simplest models that exhibits critical phenomena and
in two dimensions conformal invariance. Recently there has been
an explosion of conjectures relating the self-avoiding walk and other
two-dimensional models to a new two dimensional stochastic
process, called stochastic Loewner evolution, introduced by Schramm.
Part of the project will study many of these conjectures
for the self-avoiding walk by Monte Carlo simulations and
by perturbative methods. The simulations will be done with
a recent implementation of the pivot algorithm by the principal investigator
that is much faster than previous implementations.
This fast algorithm will also be used to study versions of
the self-avoiding walk that are important in physical chemistry.
Another part of the project is devoted to studying the low energy excitations
in a variety of quantum spin systems. These are models of the behavior
of the electron spins in crystals. At low temperatures the electron
spins tend to align. However, several domains may form within which
the spins are aligned, but between which the spins point in
opposite directions.
The interfaces between these domains will be studied by an
approach which has proved very successful for studying
one quasi-particle states. In particular, the nature of the excitations
just above the interface states will be investigated.